MRI Consortium: Development of Dynamic PicoProbe for Multi-Modal, Multi-Dimensional HyperSpectral Imaging of Soft/Hard Matter and Interfaces in Environmental Media

This Major Research Instrumentation (MRI) award by both the Division of Materials Research (DMR) in the Directorate for Mathematical & Physical Sciences (MPS) and the Division of Civil, Mechanical and Manufacturing Innovation (CMMI) in the Directorate for Engineering (ENG) supports the development of a nanoscale metrological resource, the Dynamic PicoProbe, to enable quantitative investigations of liquid/solid/hard/soft matter interfaces for time-resolved high-resolution in-situ environmental observations using advanced analytical electron microscopy. Funding this instrument development allows advancement in several areas relevant to engineering and materials research with applications in the water-energy nexus, catalysis, quantum electronics, bioelectronics, cancer therapy, and protein engineering. The project creates a national user-accessible resource and offers unique opportunities to train students, postdocs, novice and experienced researchers through collaborative investigations. Central to this instrument-development project is training next-generation instrumentalists with targeted technical and professional skillsets critical to their career advancements.

The Dynamic PicoProbe instrument features new structured illumination optics and machine learning/artificial intelligence analysis software for real-time data processing to improve temporal measurement capabilities at the nanoscale in environmental media by one order of magnitude. Both optics and software are integrated with state-of-the-art detectors into an existing best-of-class analytical microscope. The project leads to an electron-optical beam line having the elemental sensitivity (< 1% minimum mass fraction) and image resolution (< 0.1 nm) required to capture localized and individual dynamic events (< 3 ms) at solid-liquid or solid-gas interfaces. Such measurements are critical to advance multiple frontiers in science and engineering, such as engineered nanomaterials, organic/inorganic heterostructures, biointerfaces, macromolecular complexes, and quantum electronics.